Near-Inertial Wave Critical Layers in a Warm-Core Ring

It is hypothesized that the low vorticity environment of a warm core ring can trap inertial wave energy, providing locally increased finescale shear. This is supported by recent observations of enhanced inertial wave energy and elevated levels of mixing in warm rings. In this project, the P.I.'s will deploy several different types of fine and microstructure instruments in a warm core ring, in order to test these hypotheses, and to measure the mixing properties in regions of high geostrophic shear.